CAD Representations and Process Planning Algorithms for Layer Manufacturing of Heterogenous Reject

Layered manufacturing refers to the fabrication of a physical part by depositing material, layer-by-layer, under computer control. The fabrication of multi- material structures as well as the embedding of prefabricated components is possible using layered manufacturing. Mesoscopic devices and functioning assemblies can also be made directly. The automation of layered manufacturing depends on proper CAD representations of non-homogeneous objects and computer algorithms for extracting process information from the CAD models. Present CAD systems are unable to represent non-homogeneous and multi-material objects. This project addresses these problems. Research tasks include the design and implementation of algorithms and the subsequent fabrication of multi-material parts in several media.